Structural Prediction for Membrane Proteins (SGER)

The principal investigator will tackle the problem of structural prediction for membrane proteins using both a synthesis of existing cross disciplinary techniques and a new set of targets for the estimation of distribution parameters. Membrane proteins are important in the transport of materials into and out of cells. It is a commonly recognized goal of biochemistry to understand function and mechanism at the molecular level in terms of structure.